Analysis of Alternative Strategies for Mitigating Hazardous Material Incidents During Earthquakes

Planning for hazardous spill prevention and response rarely considers earthquakes. Similarly, with the exception of nuclear power plants and natural gas lines, earthquake planning has only recently begun to include hazardous materials as part of emergency planning efforts. Yet, emergency response experts acknowledge that toxic material releases may be a major concern in moderate-to-large earthquakes affecting industrialized and metropolitan areas. This project will analyze alternative strategies for reducing the number and severity of hazardous material incidents during earthquakes. The following are some of the research questions that will be addressed: (1) What specific measures or strategies are users of extremely hazardous materials, or large amounts of hazardous materials, currently using to minimize potential problems in the United States and other industrialized countries? (2) How can strategies developed to mitigate more common hazardous materials incidents or earthquake hazards be modified to deal with this combined hazard? (3) Which of these strategies have been subjected to laboratory testing and/or been tested by being subjected to an actual earthquake? An interdisciplinary team will be used to integrate state-of- the-art expertise in hazardous materials management, earthquake preparedness, and engineering design. The team expertise will be augmented by that of a technical review committee. Past earthquake experiences and research efforts will be considered. Literature review will be augmented with interviews of selected company officials and local government staff. A range of mitigation strategies will be examined, including risk assessment, site analysis, structural design, nonstructural safety measures and education.